Computer Modelling for Biology Instruction

The marine sciences are of interest to students K thought undergraduate school. However computer-aided instruction in the marine science appears to be limited to approximately twenty-four software programs currently available for microcomputers. This project is directed at the 6-12 grade levels in the area of marine biology The objectives are: to design a lesson to demonstrate the form and function of fishes; to involve students actively in the learning process by providing a computer environment for manipulating fish form, function and habitat in order to "design a fish"; and to demonstrate the concept that evolution is a function of environmental dictates. The Apple IIc or IIe computer will be used in the development because the Apple II Series is currently the microcomputer used most extensively in the precollege level schools. Evaluation of the lesson will proceed through the Delaware Department of Public Instruction, using Delaware schools. In addition to various inservice programs, the Mid- Atlantic Marine Education Association and the National Sea Grant Program will be evaluating the materials. Marketing will be done through the University office of Instructional Technology. This project makes excellent use of the appropriate technology in a most suitable fashion. Secondly, the product has high potential to serve as a model for future development in other disciplines. The availability of good software in the area of biology is very low so a real need is being met by highly qualified persons and with a modest budget.